Retinal development in a Chondrichthyes species with only rod photoreceptors

The sense of sight is incredibly important to many species. While the overall eye structure is very similar across vertebrates, there also exist specific differences between species that underlie the animal’s visual needs. These differences arise much earlier in the organism’s life history during developmental formation of the eye. This project will identify the developmental basis for these species-specific adaptations in eye architecture and produce generalizable insights into how brains evolve. To do so, this study will primarily examine eye development in the little skate (a cartilaginous fish, which is a vertebrate animal, like humans). The little skate is highly unusual in that it lacks one of the two major types of photoreceptors (cells that respond to light for vision) found in almost all vertebrate species, including other cartilaginous fish. This project will use high-powered molecular and cellular techniques to investigate the formation of the little skate eye and compare this process to that which occurs in other vertebrate species. This will identify the molecules and the mechanisms that are coordinated to produce the eye in vertebrates. The project will also incorporate undergraduate and graduate student training in research techniques relevant to biodiversity, neural development, and biotechnology. Undergraduates at the PI’s home institution, The City College of New York, will be recruited for a linked research/outreach role. This will include participation in the research aims of this proposal as well as visits to New York City Public Schools to bring hands-on research activities into the classroom and will promote the recruitment of the next generation of students to the future STEM workforce. This project advances NSF’s priorities in Biotechnology and Artificial Intelligence.

Vertebrate vision is a spectacularly adaptive sensory modality, with the capability to detect and identify salient objects across huge variations in distance and brightness conditions. While the overall retinal cell types and their organization are conserved across vertebrates, there exist species-specific variations that modify the visual system to best serve the animal’s needs based on the environmental light conditions, prey and predator identities, and spatial environment that they inhabit. Many of these adaptations have long been described by neuroanatomists and ecologists studying adult specimens. However, these differences arise much earlier in the organism’s life history during retinal formation. The developmental and genetic mechanisms responsible for these profound changes are almost completely unknown. This project will identify the developmental basis for these species-specific adaptations in retinal architecture. This will produce generalizable insights into the molecular and cellular mechanisms involved in the evolution of nervous systems and more specifically into the process of neural retina formation. This study will examine retinal development of the Chondrichthyes family member Leucoraja erinacea, the little skate. These marine creatures are members of the ancient diverged Chondrichthyes clade of vertebrates. The little skate species is highly unusual in that it lacks cone photoreceptors, one of the two major types of photoreceptors found in almost all vertebrate species, including other members of the Chondrichthyes clade. Through on-site studies at the Marine Biological Laboratories (Woods Hole, MA) the PI has conducted preliminary investigations and developed tools to examine retinal development using an established little skate colony. Robust genomic techniques including single cell RNA-Seq and ATAC-Seq as well as cellular/molecular analysis will be used to characterize retinal development in this Chondrichthyes member and identify the developmental changes that lead to a rod photoreceptor-only retina. This includes a hypothesis-driven investigation of a highly unusual cell population of transient cells found in the maturing retina.